National Forum for Engineering Technology (NFET)

A National Forum for Engineering Technology is held in 1987 to deal with issues in the educational and professional concerns of engineering technology. Resolutions that are adopted by the forum are to be referred to the appropriate bodies for implementation and action.